Control of Asymmetric Strain Relaxation in Lattice- Mismatched InGaAs/GaAs

9710509 Kavanagh This project strives for greater basic understanding of the origins of anisotropic strain relaxation in epitaxially strained InxGa(1-x)As. The project addresses fundamental research issues and encompasses identification of basic mechanisms of asymmetric strain relaxation in compound semiconductors in general, along with an orientation toward technologically relevant material combinations. The approach involves a systematic study of the effects of sample miscut and doping which are expected to provide a precise method to compare the effects of different mechanisms. Both InP and GaAs substrates will be used allowing the study of anisotropies in high In compositions, and the investigation of the effects of a phosphide based substrate on InGaAs relaxation processes. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices and integrated circuitry. Additionally, the fundamental knowledge and understanding gained from the research is expected to contribute in a general way to improving the performance of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***